Wide Area Ion Source

This proposal sets out a research and development program for a novel type of wide area ion source with a current density of at least 1 A/cm2, or three orders of magnitude greater than a Kaufman source. the proposed new ion beam technology would be lower cost (20% of present designs), compact and light weight. The ion source would have wider application than competing technologies, including spacecraft ion thrusters, and if successful would have a significant economic impact. The major technical objects of the Phase I SBIR work program will be a 'proof of concept' test of an ion source and assessment of the possible technical benefits and challenges in this technology. Critical parameters such as stability, brightness, total current, energy spread, and lifetime will be measured.